Laboratory Components of an Interdisciplinary First Course in Quantitative and Scientific Literacy

This project is equipping a laboratory that can be used for an interdisciplinary course in mathematics that meets the needs of students in the business and social science programs at the college. The course is precisely bringing a scientific context and perspective into a course alternative to college algebra for business and social science majors. It is providing the requisite mathematical background for the analysis and modeling of experimental data, is offering a significant laboratory science component in which students collect data to be analyzed, and is teaching the development of basic science laws. This course is providing an avenue to ensure that non-science-majors have the requisite data analysis skills and basic science knowledge to enable them to be competitive in their careers.